Geometric Inequalities in Fourier Analysis

Abstract

The objective of this research program is to develop a broad conceptual
understanding of geometric analysis on manifolds which takes as its
paradigm the role of sharp inequalities in Fourier analysis on the
manifold as encoding geometric information about intrinsic invariants,
symmetries and the underlying geometric structure of the manifold. Our
direct focus is to obtain new and sharper results on isoperimetric
inequalities, critical Sobolev embedding, log Sobolev and Levy-Gromov
functionals, and multilinear fractional integrals that incorporate the
framework of the Hardy-Littlewood-Sobolev inequality, Stein-Weiss
integrals, Birman-Schwinger kernels and Riesz potentials, especially in
the setting of Lie groups, symmetric spaces, complex manifolds and affine
geometry including hyperbolic space, SL(2,R) and the Heisenberg group.
Sharp embedding estimates are a critical tool to establish existence and
regularity for solutions to pde's, and to control oscillatory behavior on
a manifold. This program reflects a natural interplay and stimulus with
problems in conformal deformation, fluid dynamics, geometric probability,
statistical mechanics, string theory and turbulence. Computational methods
are essential tools to obtain a clearer understanding of the complexity of
the geometric symmetry.

Mathematical models that characterize physical phenomena and the analysis
of differential equations that describe dynamical processes require a rich
and diverse analytic framework. Scientists say that "mathematical laws
underpin the fabric of our universe." The aim of this research program is
to develop a supporting mathematical structure that helps us to understand
relations that connect uncertainty, entropy and disorder, geometric symmetry,
renormalization and scaling arguments, non-homogeneity of space-time models,
isoperimetric comparison between surface area and volume, and the fine detail
of hyperbolic geometry. We want to obtain broad and rigorous understanding of
mathematical tools that support a quantitative description of the fundamental
laws of nature, and to develop and explore mathematical structures that model
physical phenomena ranging from fluid dynamics to string theory, especially
by using patterns of symmetry and intrinsic constants that encode geometric
information about the underlying theoretical framework.